Monsoonal forcing on tropical water-rock reactions and their impact on geologic hydrogen, methane, and trace element fluxes

This project examines how seasonal rainfall influences natural chemical reactions between water and rocks in tropical environments and how these reactions generate hydrogen and methane gases. Understanding these processes is important because naturally occurring hydrogen may become a future clean-energy resource, while methane and trace elements play important roles in ecosystem function, water quality, and the global carbon cycle. By studying how rainfall patterns affect subsurface water flow and gas production, the project will improve understanding of Earth’s deep biogeochemical cycles and support the training of undergraduate and graduate students through interdisciplinary field and laboratory research.

This project will investigate how monsoonal precipitation regulates water-rock reactions (specifically, serpentinization reactions) and associated hydrogen, methane, and trace element fluxes within the Santa Elena Ophiolite, Costa Rica where these reactions are actively occurring. The research will test two hypotheses: (1) seasonal groundwater recharge enhances hydrogen and methane production in tropical serpentinizing systems, and (2) methane concentrations and isotopic compositions are controlled by varying abiotic and biotic production pathways that respond to seasonal changes in redox conditions and subsurface water storage. The study will integrate continuous hydrometric monitoring with geochemical and isotopic analyses of groundwater, surface water, gas seepages, and hyperalkaline springs across wet and dry seasons. Resulting datasets will quantify groundwater residence times and gas and trace element export fluxes, leading to a new conceptual model of hydrologically driven serpentinization and geologic hydrogen production in tropical critical zone environments.